SCI: TeraGrid Resource Partners

The proposal requests funding to establish the participation of the Texas Advanced Computing Center (TACC) as a Resource Provider (RP) in the Extensible Terascale Facility, also referred to as the ETF or the TeraGrid. ETF is an integrated heterogeneous computing-communication-information system designed to provide the national science and engineering community with unparalleled access to secure state-of-the-art cyberinfrastructure resources and services. ETF seamlessly integrates the highest-end computing resources available to the open science community, including powerful and innovative systems at TACC, sophisticated scientific instruments, and diverse data collections, using software tools and services that enable their effective use.

Among large-scale comprehensive cyberinfrastructure projects, ETF pioneers the integration of state-of-the-art software services with the policies and procedures of autonomous open national computing centers and universities. As ETF moves into its five-year operations phase, its partner institutions will seek to: deliver the promise of convenient, reliable, secure, persistent computing, data storage, data collection, and real-time instrument capabilities;support user priorities that include new software services such as co-scheduling, meta-scheduling, parameter sweep tools, and advanced data management and handling; and
implement and support science gateway services that engage a much larger number of the nation's scientists and engineers in computing-enabled research and education.

Working alongside TACC are eight other ETF partner organizations: Argonne National Laboratory, Indiana University, the National Center for Supercomputing Applications (NCSA), Oak Ridge National Laboratory, Pittsburgh Supercomputing Center (PSC), Purdue University, and the San Diego Supercomputer Center (SDSC).